CARGO: Shape Analysis From Point Cloud Data

DMS-0138456
Leonidas J. Guibas

The wide availability of scanning technologies for
3-d shape acquisition has led to the development of
algorithms and software, in both academia and industry,
for building surface meshes from the raw data returned
by the scanner. For most optical and contact sensors
this raw data is in the form of an unorganized point
cloud, or PCD set (point cloud data); current scanners
are able to generate object surface samplings at
submillimeter accuracy. At such high resolutions,
these dense PCD sets become adequate representations
of object geometry in themselves, without any need to
fit a mesh or surface. The work undertaken under this
grant will exploit tools from algebraic topology and
computational geometry to perform local and global
analysis directly and efficiently on PCD data. Specifically,
algorithms for PCD feature detection, segmentation, matching,
fitting, and compression will be developed and analyzed.

It is expected that PCD sets will become a lightweight
and convenient representation of object geometry not
only in reconstruction or visualization applications,
but even more so in the largely unexplored area of directly interrogating object geometry in the PCD format for
applications such as robotic exploration or product
customization. Over the next five years we can expect
to see wide commercial deployment of 3-d scanning and
the appearance of compact, portable scanning devices.
By exploiting the acquired PCD data it will become
possible to customize and tailor manufactured products
to their user to a degree that has been impossible up
to now. Technology developed under this proposal should
facilitate this transition in the apparel, footwear,
hearing-aid, orthodontic, prosthetics, and automotive
industries.